Miniaturized Sagnac Gyroscope in Lithium Tantalate on Insulator Integrated Photonics: Engineering Exceptional Points for Enhanced Sensitivity and Stability

Nontechnical Description
Gyroscopes are essential tools used in many technologies, such as navigation systems, drones, and camera stabilization. Thanks to advances in MicroElectroMechanical Systems (MEMS), mechanical gyroscopes have become much smaller and more efficient. However, for the highest levels of accuracy and stability, optical gyroscopes—like Ring Laser Gyroscopes (RLGs) and Fiber Optic Gyroscopes (FOGs)—are still the top choice. These devices use a physical principle called the Sagnac effect to detect rotation with incredible precision. Making these optical gyroscopes smaller could lead to major breakthroughs in low-power navigation systems for wearable devices and consumer electronics. One exciting direction is using integrated photonics—tiny optical circuits on a chip—to shrink these systems even further. A particularly innovative idea involves using something called exceptional points (EPs) in specially designed optical structures to boost sensitivity. This project explores a new type of photonic chip made from lithium tantalate thin films layered on silicon, known as the LTOI platform. The goal is to build a compact and stable optical gyroscope using this platform, controlled by electro-optic and acousto-optic modulators, and operating at these exceptional points. If successful, this new gyroscope could have a big impact on fields like navigation, aerospace, and virtual/augmented reality. Beyond that, the technology could also benefit areas like quantum computing, microwave communications, and advanced sensing—including gas detection, infrared imaging, and other motion-sensing devices.

Technical Description
This project explores the use of EPs in integrated coupled photonic cavities within the LTOI platform to enhance the scale factor (sensitivity) of a Sagnac gyroscope based on coupled optical racetrack resonators. The goal is to engineer methods to stabilize operation at EPs against environmental factors using high-performance acousto-optic and electro-optic modulators that can be directly integrated into the LTOI substrate. Vertical cavity surface-emitting lasers and photodetectors will be heterogeneously integrated on the same platform to create a very compact gyroscope. The ultimate technological objective is to develop a temperature-stable, miniaturized, and integrated Sagnac gyroscope with significantly improved size, weight, and power (SWaP) characteristics. We expect the proposed gyroscope to achieve an angle random walk of a few mdeg/√hr (comparable to the best state-of-the-art RLG) in a 100x reduced volume and 10x reduced power consumption compared to commercial RLGs.